Flora of Madagascar: Lauraceae

Lauraceae, the avocado family, are one of the most common tree families in wet forests of Madagascar. Its species provide local people with timber and spices, while its fruits are an important food source for the endemic lemurs. In spite of this importance, the taxonomy of Lauraceae in Madagascar is very poorly known. The proposed project will result in a floristic treatment of Malagasy Lauraceae and will thus make the species of this family accessible to other botanists, foresters, zoologists and other interested scientists. Results of this project will also be incorporated in a study of generic boundaries and relationships of Lauraceae on a worldwide basis.